MOREnet Expansion Phase 10

9528329 Mitchell MOREnet Expansion Phase 10 The University of Missouri-Columbia requests support from NSF to connect the National College institutional network to MOREnet. MOREnet, a midlevel network in the state of Missouri, will provide operations management and information services and it will give the campus access to the Internet, a collection of interoperable networks that connect most research and education organizations in the United States. The campus needs the Internet connection to be able to access information resources throughout the state, the nation and the world. The connection will benefit the faculty, staff students of the National College campus as well as the community in general.